Neuronal Differentiation in the Peripheral Nervous System

All of the neurons of the autonomic nervous system and most peripheral sensory neurons arise from the neural crest. The neural crest is a transitory structure which appears on the dorsal surface of the neural tube shortly after neurulation in vertebrate embryos. Neural crest cells migrate away from the neural tube along well-defined pathways to their final sites where they give rise to a variety of differentiated cell types. The differentiation of a neural crest cell into an autonomic neuron involves the acquisition of a specific neurotransmitter phenotype, which differs for different anatomical classes of peripheral neurons. A developing neuron's choice of neurotransmitter is critical, since in order to establish a functional synapse with its target tissue, the neuron must synthesize a neurotransmitter which is appropriate to the receptors expressed by that target tissue. The long-term goal of Dr. Leblanc's research is to elucidate some of the mechanisms which govern neurotransmitter choice in developing neurons. In this project, the investigator will examine the differentiation of cholinergic properties in developing avian neural crest cells. Dr. Leblanc will study (1) the differentiation of choline acetyltransferase (CAT) activity in neural crest cells in vitro, (2) the differentiation of CAT immunoreactivity in cranial neural crest cells in vivo, (3) the role of the cranial environment in directing cholinergic differentiation in developing neural crest cells, and (4) the effect of the trunk migratory environment on neurotransmitter expression in spinal motor neurons. Dr. Leblanc is a well-trained developmental neurobiologist, skilled in the use of tissue culture and transplantation techniques. The results of this research will provide new and important information on the acquisition of neurotransmitter phenotype in developing neurons.